Multivariate special functions

This research program consists of three lines of investigation, each
connected to multivariate analogues of generalized hypergeometric
functions. The first concerns a family of biorthogonal abelian
functions associated to elliptic curves that generalize multivariate
orthogonal polynomials due to Macdonald and Koornwinder. The second
aspect involves certain multivariate analogues of quadratic
transformations of hypergeometric functions, which generalize identities
from the theory of symmetric spaces; related to this is the study of
natural deformations of permutation actions of Coxeter groups to
representations of the associated Hecke algebras, some of which have led
to proofs of multivariate quadratic transformations. Finally, the
investigator will be studying multivariate elliptic hypergeometric
(contour) integrals, with a view to understanding the functional
equations satisfied by such integrals.

Historically, the study of "special functions" originated in the fact
that quite a few functions of interest in applications turned out to be
members of a single family, the hypergeometric functions. The new
family of functions the investigator is studying is a significant
generalization of this family, combining several existing
generalizations (each with their own applications and connections to
other areas of mathematics) under one roof. In addition to the
potential that new applications may arise, this investigation should
also lead to a greater understanding of the existing families.